CSEDI: Participant Support for International SEDI 2002 Meeting in Lake Tahoe

EAR-0215441
Catherine Constable

The PI's request funds to help support travel costs of conference participants to the 8th symposium of Study of the Earth's Deep Interior, to be held in July, 2002 in Lake Tahoe, California. The program this year will focus on the geophysical and geochemical evolution of the Earth's deep interior and is focused mainly on the Earth's core. This meeting will be an important venue for a diverse group of researchers to integrate their ideas and develop a consistent picture on questions such as the age of the inner core, the driving forces for the geodynamo, the structure of the inner core, and the behavior of the paleomagnetic fielding the distant past. The meeting format is well designed and should stimulate discussion among conference attendees.